RIA: Novel Electroabsorption in Stained-Layer Hetero- structures A New Effect with Potential Applications in Optoelectronics Devices

Optoelectronic light modulators, i.e. devices through which the transmission of light may be modulated by variation of an applied control voltage, are of interest for applications in which electronic control of guided light waves is required (e.g. fiber-optic commlunications systems). The current state-of-the-art in such devices is the multiple-quantum-well (MQW) waveguide modulator, which makes use of an electroabsorption effect called the quantum-confined Stark effect (QCSE). Significant improvements in MQW modulator performance may be possible, however, by exploiting an electroabsorption enhancement mechanism proposed here and termed the "field-induced absorption-edge mixing" (AEM) effect. The unique valence-band configuration required to achieve this effect is available only in certain types strained-layer heterostructures which have not yet been considered in electroabsorption studies. A detailed investigation of the hitherto unexplored AEM effect is the topic of this proposal. Theoretical models of the field-dependent near-gap absorption characteristics will first be developed and used to design optimum structures for maximum AEM effect. Appropriate strained-layer MQW structures will then be grown by metalorganic chemical vapor deposition (MOCVD), evaluated using low-temperature luminescence techniques, and used to fabricate test structures. Demonstration of the AEM effect will then be attempted and, if observed, the effect will be further characterized and its potential usefulness in optical modulators assessed. Observation large AEM effects at reasonable control voltages - which seems promising based on fundamental considerations described in this proposal - could lead both to improvements in existing MQW waveguide modulators and to new optoelectronic devices such as voltage-controlled polarizers as well.